Integrating Numerical Software Libraries With an InteractiveScientific Computing Environment

The goal of this project to integrate a powerful interactive software environment for scientific computing and visualization with suites of high-quality numerical subroutine libraries, including parallel and vector routines. The advantages of the proposed system include rapid and efficient prototyping of scientific calculations, interactive access to numerous state-of-the-art subroutine libraries, and the creation of a common platform for workstation and supercomputer based scientific computing. For the scientific user, this system will allow interactive computing within a powerful matrix-based environment including hundreds or thousands of pre-defined operations. The proposed system will function as a high-level front end to efficient supercomputer and parallel applications, and will include X Window System network graphics and symbolic debugging facilities.